Colloidal Trace Metals and DOC/DON in the Surface Waters of the North Atlantic Ocean

The research involves participation in the 1993 Intergovernmental Oceanographic Commission Open-Ocean Baseline Survey for Trace Metals: Atlantic Ocean expedition, scheduled aboard the Canadian ship CSS Hudson between July and August, 1993. The IOC Open-Ocean Baseline program is organized t evaluate the current concentrations of a variety of trace metals and other anthropogenic pollutants in the major water masses of the world oceans. This will stand as a "baseline" against which future anthropogenic impacts can be compared. The proposed cruise track and station locations will allow sampling of deep, source water masses to the North Atlantic in the overflow and formation regions. In between deep profiling stations, near-surface samples will be collected in transects (every 3-4 hours) using a clean, towed "fish"/pumping system. Samples will be collected by the PI under "contamination-free" conditions for a number of U.S. and international participating laboratories. Samples from the deep profiling stations will be filtered under clean-lab conditions for particulate (>0.4 um) and total dissolved (<0.4 um) trace elements. Samples from the surface transect will be processed for particulate (>0.4 um), total dissolved (0.4 um), colloidal (3,000 MW to 0.4 um), and truly dissolved (<3,000 MW) metals and analyzed by the PI for Cr(VI), Mn, Fe, Co, Ni, Cu, Zn, Cd, and Pb. Samples for dissolved DOC and DON fractions (as described for metals above) will also be collected along with the colloidal trace metal samples and analyzed by the high temperature catalytic oxidation technique to address the unresolved questions regarding the importance of high MW DOC/DON in seawater.